Thirteenth International Conference on the Application of Accelerators in Research and Industry, Denton, Texas, November 7-10, 1994

9404414 Duggan The grant will be used for support of the Thirteenth International Conference on the Application of Accelerators in Research and Industry, Denton, Texas, November 7-10, 1994. Support is provided to help with travel for international participants from disadvantaged countries and to help in the organization. ***